Mathematical Sciences: Conference in the Arithmetic of Function Fields; June 17-26, 1991, Columbus, Ohio

This grant will fund a 10 day conference on the Arithmetic of Function Fields, held at Ohio State University on August 17- 26, 1991. The purposes of the conference are 1) to introduce mathematicians (particularly graduate students and recent Ph.D.'s ) to the area, and 2) to serve as a forum for discussionof current progress and problems. The first week of the conference will be devoted to lectures outlining in detail the general theory. The morning talks will be of a foundational nature, while the afternoon talks will be more advanced. The last three days of the conference will be devoted to research talks on the subjects covered in the first week. Participants of the conference will also be invited to lecture. Finally, a list of open problems will be compiled and distributed to all participants. Emphasis will be given to applications of the area.